Subsistence Hunting As An Economic/Ideological Adaptation Among Young Canadian Inuit Adults

This project examines the economic and social dynamics of subsistence hunting and fishing among young adult Inuit in two Canadian Arctic communities: Holmon and Clyde River. Both husbands and wives will be interviewed to construct an accurate picture of dietary patterns, food-sharing networks, Inuit self-identity, harvest activities and wage-employment. These data will be used to examine how subsistence hunting fits into the overall economic strategies of young adult households, an important issue with respect to the future direction of northern society in Canada, Alaska and much of the Arctic world.